Dissertation Research: Warfare and Political Disintegration:A Study of the Classic Maya Collapse

Under the direction of Dr. Arthur Demarest, Mr. Takeshi Inomata will collect data for his doctoral dissertation. He will conduct archaeological excavations at the Mayan site of Aguateca which is located in the El Peten department of Guatemala. This large Classic period Mayan site contains a complex of stone structures as well as what appears to be a defensive wall. Building on prior work he has done at the site, Mr.Inomata will excavate residences and walls. He will clear rooms in elite structures and excavate test pits in other areas of the site. The focus of the field research will be on the function of walls as well as the dates of wall construction. He will attempt to determine just when the site was abandoned. The goal of the project is to determine the role played by warfare in the development and subsequent collapse of Mayan society. The data collected by Mr. Inomata will hopefully allow him to determine whether the stone walls played a defensive purpose. It will also permit him to learn how social organization at the site changed over time and whether occupation was abruptly terminated. Mayan peoples developed a complex centralized society in the inhospitable tropical lowlands of Middle America. They built temples and other ceremonial structures, developed appropriate agricultural technologies and created societal structures which incorporated tens of thousands of individuals into single political units. During the late first millennium A.D. however these entities disappeared - a phenomenon referred to as the "Mayan Collapse." The cause for this is still uncertain. While some researchers argue that ecological change played a major role, others point to the possible effect of warfare. Much recent interest has focussed on the El Peten region of Guatemala where defensive walls suggest large scale conflict. Mr. Inomata's work will provide valuable data relevant to this question. This research is important for several reasons. It will provide data of interest to many archaeologists. It will increase our understanding of adaptation to tropical regions and will assist in the training of a promising scientist.